REU Site: University of Arkansas, Directing Students to Scientific Careers

This REU program in Chemistry and Biochemistry at the University of Arkansas seeks to motivate a diverse group of students to pursue careers in scientific research. Within our 8-state region, undergraduate students will be selected from academic institutions with limited research opportunities. A key facet of this development will be the opportunity given each participant to present their research at a meeting within the department, and to write up a summary of their work in a journal format that will be compiled for distribution to their home institution. The participants will visit local chemistry and nanotechnology start-up companies and a national laboratory (National Center for Toxicological Research, Jefferson, AR). The participants will be provided an experience which will not only enable them to obtain a realistic view of modern chemical research, but they will be exposed to an environment indicative of that to be expected in graduate school. The broadest impact of this program will be the preparation of scientists for global competition in science and innovation. The majority of the University of Arkansas REU participants over the years have continued their studies post baccalaureate in chemistry or biochemistry, and these individuals have now assumed positions of responsibility in the technical infrastructure of the chemical industry, as faculty at 4-year and Ph.D.-granting academic institutions, and as technical staff at a variety of Federal Laboratories and Agencies.